Mardu Food Acquisition and Distribution

0075289 - Bird and Bird

This exploratory project in evolutionary ecology will test a number of hypotheses concerning the factors that influence variability in food acquisition and sharing among families and bands of the Mardu of Western Australia (hunters and foragers). Individuals vary in the foods the acquire and in the ways the distribute goods to maintain social relationships. In particular, this project will investigate how men and women use food in different ways and for different purposes. The researchers will focus on collecting preliminary data on foraging choices, energy return rates, time allocation and food distribution patterns, and will test to see if men face tradoffs between the benefits that can be had from social signaling and those from provisioning. The project will contribute to our understanding of how men's and women's work differs, why it differs more at some times than at others, and how men and women gain status from the kinds of work they do and how they distribute the products of their labor.